Spin, Charge, and Disorder in Correlated Metals

9507873 Rosenbaum The physics of the metal-insulator transition is intimately tied to the unusual ground state properties of highly-correlated metals, including the heavy fermions compounds, the high-Tc superconductors, and the Mott-Hubbard systems V2O3 and Ni(S,Se)2. An important, unresolved issue is the nature of the interplay of the itinerant magnetism with the Coulomb interactions and the disorder. This research project focuses on the transition metal oxides and sulfides. It aims to deconvolute the influences of the spin and charge degrees of freedom in the barely-delocalized, disordered metal through a program of electrical transport, magnetic susceptibility, specific heat, neutron scattering, and optical measurements. Temperature capabilities down to the milliKelvin regime provide new diagnostics of localization and electron interaction effects as well as simplifying the theoretical description of the problem. Moreover, possible deviations from the usual Fermi-liquid behavior, with different forms posited for the quantum and classical regimes, should be revealed by high-resolution pressure studies of the transport and calorimetric response. %%% A sharp change from a state where electrons can flow freely to one where they are unable to move lies at the heart of many device applications. This "metal-Insulator" transition can be driven by a number of external parameters, including the application of pressure, the introduction of disorder, and the manipulation of material characteristics. The research proposed here seeks to explore the interaction between disorder, found in all real materials, and control parameters such as changing electron density and internal chemical pressure at the boundary between metal and insulator. Of prime interest are transition metal oxides and sulfides, classes of materials whose electronic and magnetic responses are acutely sen sitive to small changes in the control parameters. Depending on the particular material and the nature of its preparation, it may have potential as an electronic switch, a magnetic storage device, or a high- temperature superconductor. ***